Women's Work and Women's Households in Western Massachusetts1880-1910

Why do increases in women's participation in the market economy tend to be associated with increases in the number of households maintained by women alone? In order to answer this question, more accurate measures are needed of long run changes in both labor force composition and household structure. Yet, most studies of this crucial interrelationship in the U.S. are limited to the post World War II period, when the overall picture was greatly complicated by the dramatic expansion of federal welfare programs. To remedy this shortcoming, this project will a develop and analyze data on the growth of female labor force participation as affected by the percentage of families maintained by women alone. The data will be assembled for five rapidly industrializing towns in Massachusetts between 1880 and 1910. The study will explore the economic consequences for women of different ages, family composition, and ethnic background. This will involve the collection and analysis of manuscript census data, tax and poor relief records that will provide new, accurate estimates of female labor-force participation, household structure, and economic welfare. In addition, the study will also provide some benchmark estimates of similar nationwide trends based on analysis of the U.S. Census Public Use Samples for 1900 and 1910. This project is important because it will provide a better understanding of the factors affecting the growth of women in the labor force, particularly the effect of female headed households.